Project TRUST: Teacher Renewal for Urban Science Teaching

This 48-month project is a collaboration between AMNH and Lehman and Brooklyn Colleges of the City University of New York (CUNY). It fuses formal and informal learning experiences to support a Master's program for Earth Science teachers. Ninety Master's program teachers will be recruited and sustained. Thirty school administrators will be engaged to support science instruction. Two Earth Science courses for teachers will be designed and offered by Brooklyn and Lehman Colleges. Two-week summer institutes at AMNH for teachers and administrators will serve as the required complements to the two courses. The courses and institutes will provide 120 hours of professional development as part of their teacher education Master's program requirements.